Formal Power Series and Algebraic Combinatorics: an International Combinatorics Conference

This award will provide support for US participants, especially women,
graduate students, postdocs, and junior faculty, to attend the
twenty-third and twenty-fourth international conferences entitled
Formal Power Series and Algebraic Combinatorics (FPSAC), to be held,
respectively, in Reykjavik, Iceland, and Nagoya, Japan.

The continuing success of the annual FPSAC conferences stems in part
from their considerable interdisciplinary breadth -- linking leading
researchers in combinatorial mathematics with strong researchers in
allied fields drawn from pure and applied mathematics, theoretical
computer science, physics, and biology. The span of this conference
series is unique among international conferences with an emphasis on
combinatorial mathematics. The principal topics featured during the
FPSAC 2011 and 2012 conferences will be algebraic, geometric, and
enumerative combinatorics. The emphasis will be on applications in
physics, biology, and computer science and on relations to other areas
of mathematics such as algebraic geometry, commutative algebra,
K-theory, geometric group theory, representation theory, and
symplectic geometry.